Dolphins

9725769 MacGillivray MacGillivray Freeman Films, in collaboration with Texan A&M University's Marine Mammal Research Program, Mote Marine Laboratory, Woods Hole Oceanographic Institute, ASPIRA Association, Inc, and Media Education Consultants, is producing a 40 minute, large format film on wild dolphins. The film will feature the research being done by two scientists: Dr. Kathleen Dudzinski, a young marine scientist investigating dolphin communication and social systems, and Alejandro Acevedo-Gutierrez, a young Hispanic Ph.D. researching dolphin behavior and ecology. The film will inform the audiences about the methods, tools and significance of dolphin research and immerse them in on-going scientific investigations of wild dolphins in their natural habitat. The film will be supported by teacher's guides, a Science Career Exploration Unit for Hispanic youth distributed through ASPIRA, a School Trip Package for distribution to 11,000 teachers, and a Museum Educator Kit. The project also will provide theaters with 2,000 free passes for minority and low-income outreach programs. Greg MacGillivray, President of MacGillivray Freeman Films will be Executive Producer/Co-Producer/Co-Director/Co-Director of Photography. The other Co-Producer will be Alec Lorimore, Vice President for Film Production and Development at MacGillivray Freeman Films. The Co-Director/Co-Director of Photography will be Bob Talbot, an independent marine photographer. Dr. Bernd Wursig, Professor of Marine Mammalogy, Director of the Marine Mammal research Program, and Co-Director of the Institute of Marine Life Science at Texas A&M University will serve as the chief content advisor. Other science advisors include Alejandro Acevedo-Gutierrez, Kathleen Dudzinski, Randy Wells, Peter Tyack, and the staff scientists from the Mote Marine Laboratory. Informal science education and outreach advisors include Raylene Decatur, David Ellis, Freda Nicholson, Simone Bloom-Nathan, and Hilda Crespo. Project evaluation will be conducted by Barbara Flagg.